Conference: Connecticut Summer School in Number Theory 2026

The Connecticut Summer School in Number Theory is a one-week event (June 1 - June 7, 2026) in two parts: First, advanced undergraduate students and beginning graduate students in mathematics who are interested in pursuing PhD work in number theory attend four series of lectures from Monday to Thursday. The topics of these lecture series are chosen to bridge the gap between standard U.S. undergraduate training and the tools and techniques used in modern-day research. Following this, on Friday afternoon, Saturday, and Sunday morning, number theorists from across the country are invited to give presentations on their research. All participants from the first part of the event are invited to stay for the research conference to witness how what they have learned during the week is used by working mathematicians. The website of the event can be found at https://ctnt-summer.math.uconn.edu, and includes information about previous editions of the event.

This year, the topics for the four mini-courses offered during the Summer School are: analytic aspects of quadratic forms (taught by Keith Conrad), the Kronecker-Weber theorem and abelian extensions (taught by Lori Watson), elliptic cure cryptography (taught by Alvaro Lozano-Robledo), and Magma and the LMFDB (taught by Eran Assaf). These topics were chosen to expose students to a diversity of areas of number theory with the aim to help them choose their subfield of specialization for their PhD work. In addition to these four series of lectures, the Summer School will also feature daily invited guest lectures before lunch, and evening sessions where students will have the opportunity to learn about LaTeX and Beamer as well as work on more advanced projects related to the topics of the mini-courses.